Solving polynomial systems by polyhedral homotopies

In the last two decades, the homotopy continuation method for
solving polynomial systems has been established and proved to
be reliable and efficient. Resulting from a previous project,
supported by NSF Grant DMS-9804846, a source code, HOM4PS, was
produced. Excellent performance of this code on a large collection
of polynomial systems in a wide variety of applications provides
practical evidence that the newly developed methods constitute a
powerful general purpose solver. Nontheless, there are still
numerous models of polynomial systems in applications which do
not have a satisfactory line of attack. Those models provide a rich
source of interesting and challenging problems with strong mathematical
content. The essence of the proposed project is the advance development
of the solver based on the conduct of further research
to greatly enlarge the scope of its applications. The ultimate goal
is a more complete high-quality block-box solfware which will
incorporate the best state of the art to provide the general scientific
community a reliable source for solving polynomial systems in practice.

The problem of solving polynomial systems has been, and will continue
to be, one of the most important subjects in both pure and applied
mathematics. The need to solve systems of polynomial equations arises
very frequently in various fields of science and engineering, such as,
formula construction, geometric intersection, inverse kinematics,
robotics, vision and the computation of equilibrium states of chemical
reaction equations, etc. In recent years (1993-1999), a considerable
research effort in Europe had been directed to this problem in two
consecutive major projects, PoSSo (Polynomial System Solving) and FRISCO
(FRamework for Integrated Symbolic/numerical COmputation), supported by
European Commission with thirteen university teams in seven European
countries involved. Those research projects focused on the development
of the already well-established Groebner basis methods within the
framework of computer algebra. Their reliance on symbolic manipulation
makes those methods seem somewhat limited to relatively small problems.
In contrast, the approch by the homotopy continuation method in this
project is numerical and exhibits much powerful application results.